Development of a VLSI System for Improved Monitoring and Stimulating Action Potentials of Neuronal Networks

The prototype of a VLSI multichannel preamiplifier system for recording and stimulating neural; activity has been developed at Southern Methodist University as proposed in a two-year grant. A three-year follow-on-grant is proposed to enable sufficient testing and modification for recreation of the robust proven system necessary for a production model that could function in the laboratories of the neuroscience community at large. The objectives are 1) to eliminate problems in the prototype that might occur when it is used with neural systems; 2) to provide features of control, programming, record-keeping, electrode-characteristics, and neural-network- characteristics sampling, and convenience essential to the management of the collection of data form large neural arrays; 3) to provide an improved planar multielectrode array. The objectives will be obtain 1) by regular and systematic testing in the Center for Network Neuroscience at the University of North Texas and also at other selected laboratories as possible; 2) by re-design and/or modification of the VLSI chip and associated hardware as necessary; and 3) by continued experimentation with materials and methods to produce the desired improved electrode array. Production of the system will greatly simplify the task of obtaining the information from large numbers of electrodes needed for the study of living neural networks.